Group Travel Grant for Young U.S. Scientists to Attend the XXI ICPEAC to be held in Sendai, Japan, July 22-27, 1999

9904114
McGuire
Support is provided for young scientists to attend the XXI International Conference on the Physics of Electron and Atomic Collisions to be held in Sendai, Japan, July 22-27, 1999. The material presented in this conference is timely and strongly overlaps the AMO Program.